Applications of Frontal Chromatography to Multicomponent Systems

This award, supports the work of Drs. Jon F. Parcher and Kwang S. Yun at the University of Mississippi, is supported in the Analytical and Surface Chemistry Program. The research continues Dr. Parcher's use of two complimentary chromatographic techniques, tracer pulse chromatography and molecular probe chromatography, to study the interaction of supercritical fluids with polymers. Fundamental investigations include further development and expansion of the Sanchez-Lacombe lattice fluid model to interpret experimental chromatographic data for single-component, binary, ternary and quaternary systems. In the course of the investigations, adsorption isotherms for carbon dioxide in polymeric stationary phases will be determined over a range of temperatures and pressures for a series of polymers commonly used as SFC stationary phases. Adsorption isotherms for binary mixtures of carbon dioxide and various SFC modifiers will also be measured over a range of temperatures and pressures to provide a three-dimensional array of temperature, pressure and composition.

This research develops chromatographic procedures and thermodynamic data that are of interest to a variety of researchers interested in new and innovative means to investigate complex multicomponent, multiphase systems. The results are also likely to be used in industries where there is interest in transport properties, manufacturing, or design of new polymeric materials.